Travel Support for the Conference "Gravitation: A Decennial Perspective"

This award supports travel of participants to the international conference Gravitation: A Decennial Perspective, to be held at Penn State from June 8, 2003 to June 12, 2003. This travel support will enable younger participants, particularly graduate students and post-docs to attend the conference.